Travel Support for the Sixth WMO Conference on Weather Modification; Siena, Italy; May 30 - June 4, 1994

9404719 Hallgren The purpose of this action is to provide travel support for five U.S. scientists to attend the World Meteorological Organizations sixth conference on weather modification in Siena, Italy (30 May-4 June 1994).